Failure Behavior of FRP Bonded Concrete Affected by Interface Fracture

Use of FRP composites for strengthening of existing structures have rapidly increased in the last decade. However, in applications, some fundamental aspects are still not well understood, specifically those related to performance and behavior of FRP-retrofitted members under cyclic loading and the role of environmental effects on this behavior. The proposed research, through rigorous experimental, analytical, and numerical studies, will contribute to better understanding of retrofitted systems behavior under monotonic and cyclic loads combined with environmental effects. This will form a basis for development of an integrated design methodology for safe applications and for better assessment of durability of such systems, which are becoming widespread around the world.